REU Site: Accelerator and Nuclear Physics

This Research Experiences for Undergraduates (REU) site at Old Dominion University provides opportunities to eight undergraduate students each summer for ten weeks of research with continued opportunities for two students during the academic year on topics in accelerator and nuclear physics. The REU students will conduct the research at the Thomas Jefferson National Accelerator Facility. In addition to participating in research with an experienced mentor, the students will engage in weekly activities to ensure not only that their research stays on track but that they have an engaging collegial and scholarly experience. By the end of the program, every student will have written a research report and presented the results of their work in a talk, as well as prepared a poster.

This REU site will have a number of broader impacts with its focus on providing research opportunities to undergraduates to help prepare them for future science, technology, engineering, and mathematics careers. Additionally, the site focuses on providing research opportunities to students from institutions with small or no research programs in physics. The site has a strong plan to recruit students from groups underrepresented in physics.